Collaborative Research: Episodic, ENSO-Orchestrated Carbon Sequestration in Amazonian River Basins by Erosion-Sedimentation Processes

Abstract - Hernes - 0403478

This interdisciplinary group proposal addresses a three-step process that could represent a major
carbon sink in Amazonian foreland basins. Stated as hypotheses, the proposal suggests: 1) extensive
Andean hillslope failure and channel migration during large La Nina associated storms mobilizes vast
quantities of fresh organic matter and sediment with low organic carbon (OC) content ; 2) within the
river, mineral surfaces acquire normal OC loadings via sorption as they are rapidly evacuated from the
mountainous source basins to adjacent foreland depocenters; and 3) deposited sediments preserve "fresh"
carbon within organo-mineral complexes and by deep burial in point bars and "crevasse-splay" deposits
that have little potential for exchange with the biosphere and atmosphere. Calculations presented in the
Project Description (C.1.2) suggest that this process could sequester ~ 300 Mtonnes of carbon per event in
the Amazonian foreland. When extrapolated globally to other humid tropical regions, these estimates are
equivalent to 50-100% of the average annual "missing carbon sink" or 50-100% of atmospheric CO2
anomalies typically observed during La Nina.
To explore these hypothesis, proposers will study 1) the rates and mechanics of sediment
mobilization, transport, and deposition of river sediment during extreme events, 2) the associations of
organic carbon with sediments at erosional and depositional sites, and 3) the transfer of OC from rapid
(<5 y) to slower (>50 y) turnover pools, via sorption and deep burial processes. We will employ a
combination of GIS analysis of satellite images to map changes associated with individual large storms
(hillslope failures and river migration); field surveys of sediment transport processes; and laboratory
analysis of archived and newly collected samples to determine organic carbon concentrations, sources and
turnover times; sediment characteristics; and transport/deposition timing and rates (geochronology).
The proposed project is a collaborative, multi-disciplinary, multi-national research effort that
builds upon a record of prior and current NSF-funded results of decadal-scale sediment fluxes and organic
carbon dynamics within river basins of the Amazon. In close coordination with sediment-flux,
geochronological, geochemical, and process-mapping (GIS) studies conducted by scientists from Univ. of
Washington, scientists at Stroud Water Research Center and Univ. of California Davis will investigate the
quantities, sources, and sequestration of organic carbon mobilized during by these geomorphological
processes. In addition, this project benefits from a close working collaboration with the French Institut de
Recherche pour le Developpement (IRD), with whom we will conduct fieldwork in the Andes and
foreland basins of Bolivia and Peru during both the dry and wet seasons. Additional collaborations are
with the Univ. Nacional Agraria La Molina (UNALM) and the Univ. of California Santa Barabara. These
continuing international collaborations offer considerable scientific and logistical advantages and cost
savings for this current proposal to study the carbon transported and deposited by extreme storm events.
If this research effort substantiates the primary hypothesis, such continental-scale, climate-driven,
erosion-sedimentation processes will be demonstrated to represent substantial, previously unrecognized
natural carbon sinks of global significance. Furthermore, these processes could potentially result in the
sequestration of similar quantities of carbon by anthropogenically accelerated erosion-sedimentation.
Additionally, this research benefits anyone interested in the geochemical processes of organic carbon
preservation in sediment and soils or the timing/rates/mechanics of landsliding, sediment transport,
channel-floodplain interaction, and sedimentary basin dynamics during extreme, ENSO-orchestrated
floods.
The strong bridging between the disciplines of geomorphology, biogeochemistry and organic
geochemistry has broader impacts on earth science as a whole, by offering new perspectives that will
facilitate the development of new geochemical and GIS techniques. Enhanced collaboration with IRD
supports a productive and visible international, interdisciplinary scientific partnership. For example, our
previous collaborative research with IRD resulted in new understandings of mercury contamination
dynamics within riparian food sources to indigenous human populations. The PIs have a record of public
outreach, and this project will generate data products useful to educators and researchers, including our
own teaching and public presentations to both scientists and general audiences. Furthermore, this will
provide valuable research experience to many undergraduate and some graduate students in the USA and
South America, including funds for these students to publish and present results at meetings